SCI: K-16 Outreach Activity: "Math is Cool" -- Building on Success

This award funds a twelve-month planning effort to initiate development and distribution of a nationally available video series called "Math is Cool" that inspires students from kindergarten through the undergraduate university level (grades K-16) to understand and explore the importance and impact of mathematics on their daily lives. This pilot effort will build on the decades of experience and success of the principal investigator and the Rice University Center for Excellence and Equity in Education (CEEE) to develop programs that engage and excite students from diverse backgrounds. The video series will be designed to help students learn about basic physics and mathematics; discrete mathematics; number theory; differential and integral calculus; and differential equations.